Cosmic Magnetogenesis: Physical Mechanisms for the Origin and Growth of Cosmic Magnetic Fields

This is a proposal to develop a theory for how magnetic fields originated and grew alongside other forms of cosmic structure, eventually pervading the Universe. Planets, stars, interplanetary space, the tenuous gas in galaxies and the even more tenuous gas between galaxies all host magnetic fields. Magnetic fields power cosmic explosions, launch jets from stellar and black hole environments, and shield the Earth from deadly high energy particles – which are themselves created by the solar magnetic field. Yet, despite decades of progress in cosmology, the origin of astrophysical magnetic fields is not understood. Unlike familiar, permanent magnets, which can be detected in orderly patterns of iron filings, magnetic fields in ionized gases are sustained by the flow of free electrons, are as malleable as the gases themselves, and form complex, everchanging patterns which reflect not only the instantaneous state of the gas, but much of its history. A team of scientists at the University of Wisconsin will use cutting-edge simulations of the universe to investigate how the spread of radiation from the first luminous stars after the Big Bang interacted with the surrounding matter to create magnetic fields where none previously existed, and how the fields were then amplified and reconfigured by turbulent flows of gas. As part of this project, undergraduate students will be trained in computational science. The team will also carry out a significant outreach program, designing and running interactive workshops for K-12 students and creating educational modules for the general public.

The rates of magnetogenesis and initial stages of magnetic field amplification are likely to be highest in cosmological ionization fronts, which are geometrically thin but morphologically complex due to the ambient density clumps and turbulent flows. The team will use state of the art radiative transfer and plasma physics methods to simulate ionization fronts, including the self consistently generated electric currents, electric fields, and magnetic fields that form within them. The magnetic fields generated in this way are extremely weak, so the team will also consider the current driven Weibel instability, which generates stronger fields on smaller spatial scales. Whatever the origin of the magnetic field, once it inductively couples to the flows, it will be amplified. The major outcome will be a model of cosmic magnetogenesis that operates throughout the Universe and predicts the role of magnetic fields in galaxy formation, supermassive black hole growth, and high energy cosmic ray propagation. Once the theory is in hand, the team will use it to inform a subgrid model suitable for use in cosmological simulations, giving the work even broader scientific impact. A postdoctoral research associate will be appointed and broadly trained in radiative transfer theory, plasma physics, and scientific computing.